Dynamics of Catalytic Reactions and Reactors

Nonsteady state performance of chemical reactors are difficult to predict and analyze. Many industrial reactors exhibit such behavior and the result is that the large and unexpected swings in performance mandate their operation far from productivity maxima. This also has the potential to cause serious accidents. By understanding the mechanisms and manifestations of reactor dynamics, existing processes can be improved, reactor safety can be increased, and new modes of reactor operation may become feasible. The PIs plan to focus on the dynamic behavior of a class of nonlinear systems: catalytic reactors. They are planning a program designed to characterize catalytic reactions and reactors experimentally and theoretically in order to develop a more fundamental understanding of these systems and an improved ability to control them. Experiments will probe the dynamics of oscillatory and multiple steady states by monitoring spatial and temporal variations of spontaneous catalytic oscillators and of systems perturbed between states. Systems studied will primarily be fast reactions on noble metals where heat effects and nonlinear kinetics combine to produce these behaviors. In particular, the selectivities of endothermic decomposition reactions and exothermic oxidation reactions on Pt and Rh surfaces in single crystal, wire, foil, monolith, and supported forms will be studied. Models will be developed to simulate spatial and temporal dynamics in these systems, to determine the types of behavior which may occur, and to develop more efficient algorithms to solve nonlinear reactor problems. Effects of strong attractive adsorbate interactions, multiple surface phases, and surface diffusion limitations on reaction systems will be modelled. New computational methods such as inertial manifold theory will also be applied to these problem. ***//